RUI: A Search for EKA-Radon

This grant, made under the RUI program, supports the search of a Trinity College faculty member for evidence of the existence of a heavy, volatile .-emitter, eka-radon. Such a substance would be a super-heavy element and would be the heaviest naturally occuring element to be discovered.